The Albert Einstein Distinguished Educator Fellowship Program

9815329 The Albert Einstein Distinguished Educator Fellowship Program is designed to provide teachers the opportunity to bring to Congress and selected Federal agencies involved in education the insights, extensive knowledge and practical experience of teachers working in science and mathematics classrooms. The program will encourage these educators to make their experience available in policy-oriented assignments in the agencies and organizations named in the legislation.